US-France Cooperative Research: Motor-Driven Dynamics of Membrane Networks- A Model for the Formation of the Endoplasmic Reticulum in Cells

9815772
Nelson

This three-year award for US-France cooperative research in materials science and biological physics involves Philip Nelson of the University of Pennsylvania and Jacques Prost and Frank Julicher of the Institut Curie. Their research is focused on theoretical studies of the dynamics of biological systems consisting of lipid bilayer membranes, molecular motors and cytoskeletal filaments. Recent biological experiments have demonstrated that the interaction of these three physical components plays a key role in the formation of cell organelles that have the structure of membrane networks. This theoretical work will investigate the interaction of all three components.

The US team brings to this collaboration expertise in the dynamics of lipid bilayer membranes and of networks. This is complemented by French expertise on membranes and molecular motors. Researchers at the Institut Curie will also carry out controlled in vitro experiments, permitting further refinement of the theoretical models.